The Development of the Advanced Undergraduate Physics Laboratory

A senior laboratory facility will be improved and upgraded. The emphasis is on the integration of computer data acquisition facilities. This activity is supported through the Instrumentation and Laboratory Improvement.